Logics and Type Systems for Computational Complexity

The certitude that software execution terminates in principle
is of little use without a grasp of the resources required,
in particular computation time and space as functions of input size.
Research over the last decade has demonstrated the potential of implicit
static analysis of computational complexity, that is, programming and
verification paradigms that automatically guarantee program execution
within feasible resources, without an explicit analysis of
algorithmic complexity in terms of machine models.

This project further explores the conceptual
underpinnings of machine-independent complexity, in particular
abstraction mechanisms in functional programs and verification systems.
It studies the implementation of these principles within major
programming paradigms and styles, notably declarative and object
oriented programming.
Finally, it initiates applications of implicit complexity
in Feasible Mathematics, in the guise of a library
of formal proofs which establish the feasible computational contents
of mathematical theorems without referring explicitly to computational
complexity.